New Forms of Liquid Crystals as Lubricants

An agreement has been made with the Tribology program at ONR to directly provide funds for the Penzoil's participation. Therefore, NSF will provide $70,913 for the research conducted at Clarkson. This proposal has been approved by the Innovative and Exceptional Research Committee as a "High Risk High Return" project. This Committee will cost share at 50%.